Novel Organic Cages as Moduli for Extended Three-dimensional Networks

Professor Elena Galoppini, Department of Chemistry, Rutgers University at Newark is supported by the Organic and Macromolecular Program of the Chemistry Division under a Research Planning Grant to establish a synthetic methodology leading to novel organic cage molecules. Derivatives prepared from commercially available adamantanes and tetraphenylmethanes are coupled to achieve robust, rigid cages with internal cavities ranging from 18 to 28 angstroms in diameter. Professor Galoppini presents a clever approach to the synthesis of organic cage structures that possess the rigidity needed to serve as moduli for the synthesis of extended, porous, supramolecular organic networks. A Research Planning Grant at this stage in Professor Galoppini's career offers a means to exploit the chemistry, and develop the methodology needed for an NSF research proposal in a very competitive area. Porous organic materials of tailorable architecture are an attractive complement to currently available porous, inorganic materials. The synthesis of such materials, however, rests on building blocks of sufficient rigidity to support an extended three dimensional array of the individual units. A synthetic methodology using commercially available reagents will be developed to afford a series of rigid organic cages that will serve as building blocks. Three dimensional materials will be assembled with tailorable porosities to allow the diffusion and encapsulation of different reagents.